Causal Inference in Instructional Workforce Research

The proposal will synthesize existing studies of the connection between teacher training and student achievement. Studies of experimental, quasi-experimental, and non-experimental design will all be included in the synthesis. The goal is to produce a meta-analysis not limited by research method.

Intellectual Merit
The study will create improved evaluation capacity building. By concentrating on research on teacher qualifications . things like whether people have majored in particular subjects, achieved high grade point averages, been granted certification in specific areas. The studies that will be evaluated will include a relationship of teacher qualifications to student achievement.

Broader Impact
This project has the potential to substantially enhance future research and evaluation and will provide a framework for designing and interpreting non-experimental studies and estimating their validity. It will provide empirical advances by estimating the magnitudes of differences among effect estimates generated under various design conditions.